Symposium on Flow Induced Vibration in Heat Exchangers

Abstract - 9803123 Ljubicic The proposal is to partially support a workshop on Flow Induced Vibration in Heat Exchangers. Flow induced vibrations lead to early failure of heat exchanger tubes by wear, fretting and fatigue. The objective of the workshop is to investigate the prediction, diagnosis, correction, and prevention of acoustic and flow induced vibration by sharing information among the participants who represent industry and academia. The program covers field data, research, modeling, and prediction of acoustic vibrations. The proceedings will be available in a document published by the Heat Transfer Research Institute.